BioComp: Translating Mechanisms of Novelty Recognition in Drosophila into a Computational Device

Fruit flies exhibit versatile and sophisticated capabilities of stimulus discrimination and
"attention"-like behavior. They are particularly attuned to recognizing novelty. This proposal
outlines a plan to delineate the network and neural principles underlying the fruit fly's ability to
perform these information-processing functions, and then to employ them as the basis for a
computational device. This multi-step program will be begun by defining the circuitry in the fruit
fly subserving its recognition, selective attention, and novelty responses, analyzing the
contributions, connections, and interactions of these circuit elements both behaviorally and
physiogically, and then introducing this neural architecture as the basis for the computer-simulated
brain in a brain-based device capable of displaying novelty recognition.
We will use techniques of gene targeting that we have developed previously to identify
the parts of the brain contributing to recognition, selective attention, and novelty responses. We
will map the sites in the nervous system mediating the effect by manipulating neural activity.
This will be achieved in two opposing ways: one way by blocking activity and the other by
increasing activity. These perturbations will be targeted to different, restricted parts of the brain
by means of a set of genetically engineered fly strains we have developed and used over the
years. In this manner, we will map the funcitonal circuitry mediating a fruit fly's novelty
response by increasing or decreasing excitability in restricted brain regions.
Aim 1: Analyze the complex, organizational architecture by which the fruit fly's nervous system
achieves behaviorally the recognition of novelty.
Aim 2: Map the distribution of the 20-30 Hz LFP response in various brain regions, and the role
of coherence between these brain regions in the generation of the fruit fly's novelty response.
Brain-based devices provide the groundwork for the development of intelligent machines
that follow neurobiological rather than computational principles in their construction. As is the
case with animals, the behaviors of brain-based devices emerge solely as a result of internally
generated activity of their nervous systems rather than of responses to any programmed
instructions from computer software. Such devices are particularly useful in situations of novelty
where computation is not possible in principle or in cases of great local complexity where
programming proves infeasible. Such a device must confront novel situations and complex sets of
parameters that must be dealt with rapidly. Our goal is to implement principles from the fruit fly
system into such a device, using as our platform an existing brain-based device developed at The
Neurosciences Institute.
Aim 3: Introduce a simulated neural architecture based on the functional network for novelty
detection defined in Aims 1 & 2 into a brain-based device.
The long-term goal of this work is to understand the principles upon which the nervous
system of the fruit fly operates as the basis for neurobiologically inspired computational devices.
The principles underlying nervous system function hold promise for developing a new generation
of devices that would be more capable of adaptive behavior than current systems. The most
sophisticated behavior seen in either biological or artificial agents is shown by organisms whose
behavior is guided by a nervous system. The fruit fly offers the requisite complexity to be of
value in this endeavor, while being simple enough (i.e., small enough in neuron number) to be
amenable to analysis. Most importantly, it offers sophistication afforded by a multi-disciplinary
experimental approach (genetics, anatomy, physiology and behavior) to be followed by computer
simulation and device implementation.